NSF Graduate Teaching Fellows in K-12 Education at the University of Maine

The program for Graduate Teaching Fellows in K-12 Education at the University of Maine is consistent with the State's legislatively mandated goals for education in Science and Technology. Twelve Fellows are working in four local school districts through this program, which engages colleagues at the University and K-12 schools in transfer of knowledge and curriculum development with respect to topics such as Classifying Living Things, Forestry & Pulp and Paper Studies, and The Hydrological Cycle. The project is providing K-12 students and teachers with access to curriculum development, field trips, technology, and equipment that local school budgets had not provided. A summer "science camp" is being used in the training program to establish the teaching teams (university faculty and K-12 teachers) that mentor Fellows. The program provides SMET fellowships for the University, professional development for K-12 teachers, important role models and knowledge to K-12 students, and a strong bond between the science faculty of the University and K-12 teachers.